RET Site: Summer Research Experiences for Seventh to Twelfth Grade Teachers in Civil Infrastructure Renewal and Rehabilitation

This action provides funding for a three year standard award to support a Research Experiences for Teachers (RET) Site program at the University of Cincinnati entitled, "Summer Research Experiences for Seventh to Twelfth Grade Teachers in Civil Infrastructure Renewal and Rehabilitation," under the direction of Dr. Anant R. Kukreti. The goals of this program are: 1) to educate, cultivate, and facilitate 7th to 12th grade science and math teachers by exploring the scientific method of inquiry and the critical research skills that engineers use to solve open-ended real world problems; 2) to have the participating teachers become role models by applying their research experiences in their classrooms and with colleagues; and 3) to have the teachers' new skills enable 7th to 12th grade students to directly link their education to events and issues occurring within their community and encourage them to become effective citizens in a technology driven society.